Ecological Genetics of Sex-Chromosome Traits in the Tiger Swallowtail Butterfly Hybrid Zone

9981608
Porter

The tiger swallowtail butterfly species Papilio glaucus and P. canadensis
meet in a narrow zone of hybridization across the eastern US. They differ
in ecologically important traits, including the control of winter diapause
and the mimicry (only by P. glaucus females) of a related, distasteful
species. These traits are controlled by genes on the X- and Y-chromosomes.
Theoretical advances in the biology of hybrid zones, such as this one,
have allowed the measurement of the strength of natural selection acting on
ecologically important traits, as well as the rate that other genes can
slip through to the opposite species. The authors will use this theory to
measure the strength of natural selection acting on diapause, wing
coloration and other X- and Y-associated traits. They will do parallel
field experiments to measure selection on these traits. Finally, they will
measure the ability of this selection to block the spread of other genes
between these hybridizing species.

Sex chromosomes play a central role in biology and have several properties
unique from other chromosomes, but biologists have few data from nature
about how evolutionary forces affect sex-chromosome variation. The authors
of this study exploit key features of the biology of these butterflies to
study the evolutionary pressures acting on sex chromosomes and the spread
of genes between related species.